2017 Oeanographic Instrumentation R/V Atlantic Exploer

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.

The Program recommends an award of $113,098 for the purchase of the following:

Spare CTD Deck Unit $8,590
OpenVDM Data Management System $10,098
Liquid Nitrogen Generator System $37,643
Upgrade Underway Scientific Seawater System $48,059
Upgrade Test and Troubleshooting Equipment $8,708
$113,098